Review of Introductory Biology Instruction Team (RIBIT)

Discipline: Biological Sciences (61)

This planning grant is enabling a group of faculty planning to substantially revise their introductory biology course to profit from the experience of three model programs chosen on the basis that these programs were designed to address challenges analogous to their own. The redesigned course sequence may then serve as a basis for general redesign of the state mandated components of introductory biology courses offered by the 21 community colleges within the state of Alabama.